Workshop on Atlantic Basin Paleohurricane Reconstructions from High Resolution Records; Columbia, South Carolina; November 12-14, 2000

This award is for a workshop to develop a working plan on reconstructing detailed pre-1851 hurricane activity for the Atlantic Basin for the last 2000 years from a network of high resolution proxy records. The main workshop themes will be: 1) to assess the quality and quantity of documentary data suitable for reconstruction of Atlantic hurricanes from the different colonial archives, 2) to discuss and devise methodologies for merging different colonial archives, tree-ring, and sediment records together in order to reconstruct Atlantic hurricanes quantitatively as they relate with the modern (20th century) hurricane record, and 3) to address the key paleoclimatic issues and potential forcing mechanisms (e.g. ENSO) that can be answered from longer records of Atlantic hurricanes prior to the modern record.